Workshop on Interfaces to Scientific Archives

This workshop addresses the question of how to create a collaborative digital library, to disseminate scientific data to a wider audience than those who created the data: from local, national, or global collaboration or the entire Internet. We bring together case studies (from physics, astronomy and biology), with those offering enabling technology, and other information scientists. Topics of the workshop include metadata formats, databases, graphical user interface (GUI) software, and data exploration software; how a new user can quickly and easily learn to use the library; how the new user can reuse interaction paradigms learned elsewhere; how to provide a mechanism for users to annotate the library and create new metadata. Another main thrust of the workshop is the provision of high-performance computing that is connected at high bandwidth to the data archive, to provide filtering and data mining services. The output from the workshop is a well-disseminated report of its conclusions, accessible via Internet, and published in digest form in a peer-reviewed journal. This workshop will offer approaches that can provide or improve access to scientific data to a wide variety or users, ranging from scientists, business and policy decision makers, general public to schoolchildren.